U.S. Japan Long-Term Research Visit: Development of Phenol-! :rea-Formaldehyde Wood Adhesive Systems

Under this award Dr. Chung-Yun Hse, Principal Wood Scientist of the Southern Forest Experiment Station of the U.S. Department of Agriculture will spend twelve months(commencing in December, 1990) in the laboratory of Professor Bunichiro Tomita, Department of Forest Products, University of Tokyo where he will investigate the chemistry of co-condensation reactions between urea and methylol- phenols to develop low-cost, durable phenol-urea-formaldehyde adhesive systems for bonding wood composites.